Research Initiation Award: Dynamic Evaluation of Voltage Collapse on Power Systems

This a Research Initiation Award dealing with the impact of load, exciter, and transformer models on the simulation of voltage collapse dynamics. This research is expected to identify and predict conditions under which voltage instabilities are likely to occur and to develop control actions to rectify unsuitable voltage profiles.